Introduction of Environmental Water Quality into the Agricultural and Biosystems Engineering Curricula

A new course in Environmental Water Quality has been developed in the Agricultural Engineering Department at the University of Idaho. The course is part of the Agricultural Engineering and the new Biological Systems Engineering curricula. The laboratory component of the course covers non-point sources of water contamination, such as leaching from agricultural land, erosion from forestry land and effluent from livestock and fish production systems. The course integrates physical experiments and demonstrations on chemical transport processes with computer simulation of non-point source contamination processes. Students from a number of academic departments with an interest in water and environmental resources can enroll in this course.